Staged Concentration Amplification of Gases Using Polymer Absorbers

9361483 Kalumuck Research in this project aims toward the development of thermal swing adsorption technology for the concentration and removal of gaseous species by polymeric adsorbents. An existing mass transfer numerical model will be extended to include heat transfer effects and then applied to understand the influence of the physical and operating parameters on system performance. Experiments are planned with a polymer/gas pair to demonstrate feasibility and validate the model predictions. Efficient and economical means are needed to remove gases like volatile organic compounds(VOCs) for American industries to meet environmental concerns and remain competitive. This method could overcome the sensivity to humidity and complications from regeneration of carbon adsorption beds. ***